Interactions between Representation Theory, Quantum Field Theory, Category Theory, and Quantum Information Theory; June 2007, Tyler, TX

The conference will explore the connections between Representation Theory, Quantum Field Theory, Category Theory, Mathematical Physics, and Quantum Information Theory. These fields are interrelated and have motivated each others' development. The conference will bring together experts in these areas to enhance research interactions.

Cross-disciplinary interactions are widely recognized for their value in stimulating new ideas and advances. The conference will not only increase the knowledge of the participants, but could result in the invention of new theorems, interesting conjectures, and fascinating generalizations as well as practical applications. In particular, this conference will help further the advancement of Quantum information Theory, which is of importance in the development of quantum computers.
More information about the conference can be found on the following web page:
http://math.uttyler.edu/math/conference/Representation%20Theory%20Conference